CI-ADDO-EN: Collaborative Proposal: Supporting Web-Scale Experimentation using the Lemur Toolkit

This project maintains and enhances existing community software
infrastructure, and creates new community data infrastructure to
enable the information retrieval research community and related
research communities to conduct research on a "web scale",
meaning datasets of a billion or more web pages together with
large query logs. The software infrastructure is based on the
Lemur Toolkit and the associated Indri search engine, which are
used by many information retrieval researchers due to the support
for multiple retrieval models, multiple forms of evidence, and a
powerful probabilistic query language. The enhancements to Lemur
include support for the popular MapReduce style of distributed
processing and other efficiency improvements to make it practical
to do research on large web datasets 'out of the box' in common
computer hardware environments.

The new data infrastructure consists of maintenance and
distribution of a newly created billion-page dataset, another new
web dataset, and large, anonymized search logs that match the
datasets. The combination of large datasets and corresponding
large search logs enable a broad community to conduct research
with more realistic data resources than were available
previously. This research will lead to further advances in the
understanding of the underlying issues for large-scale,
personalized search, which will be an important part of the next
generation of search engines.

For further information, see the project web site at the URL:
http://www.lemurproject.org.